Hot Hole Oxidations at Semiconductor Metal Electrodes

The oxidation of organic compounds is of concern in fuel cells, synthetic electrochemistry, pollution control, and gas sensing. The complexity of the desired reactions allows opportunities for unwanted side reactions to occur, with the formation of undesirable blocking intermediates. To perform organic oxidations without such complications, there is a need for the proper metal surface to facilitate adsorption and cracking of molecules, as well as powerful oxidizing conditions to overcome strongly bound intermediates. The latter conditions are found, but are not limited to situations where oxide semiconductors such as n-ZnO, N-TiO2, and n-SrTiO3A are used as the catalyst. The PI plans to combine the desirable properties of both metals and semiconductors to achieve an advanced catalytic electrode for facile oxidation reactions by fabricating the electrode to take advantage of the hot hole effect. He is planning studies of dark injection and photo-injection of hot holes into thin metal films over n-type and p-type semiconductor substrates. His hot carriers (holes) are available in the dark, and he will use metal films to radically alter the catalytic properties of the semiconductor surface. The method features the formation of excited states at metal surfaces that have, in the past, been created only by high energy photoemission into the liquid electrolyte. The physical and chemical properties of hot holes will be investigated with emphasis on oxidation of organic species such as CO and methanol and their oxidative intermediates.